The Origins of Public Authority in American Cities

Public authority in the United States is at a particularly low ebb. This has not always been so. Well into the nineteenth century, the United States had a much more popular and participatory public life than it does now, and public attitudes toward public authority were more positive. This project seeks to understand how and why this change has taken place through an examination of the origins of public authority. The project will examine the shaping of public authority in one city (Philadelphia) during the nineteenth century since the local level is where the discussion, debate, and development of public authority took place. The data for the study includes records from the court and prison dockets, grand jury presentments, annual reports of municipal agencies, and record books from various public and social service agencies as well as newspapers, popular literature, and the papers of jurists and lawyers. The project will concentrate on how an understanding of public authority was manifested in the activities of local institutions, including local courts, and the circumstances of its transformation as manifested in struggles over criminal law, education, public services, and social services. Although there have been a number of studies of the formation of the American state, few have illuminated aspects of public authority below the level of the state and federal governments. Most historians have explained the peculiarity of public authority in the United States by emphasizing its weakness relative to the market and demonstrating how private economic interests have determined public authority and policy. This research offers a new perspective in concentrating on localism and non-market authority in the legal, social, institutional, and intellectual aspects of public life. Results of the research will add substantially to our understanding of the institutional structure and behavior of American law in the post World War II era. From a practical standpoint, such an understanding is becoming increasingly important because of both the pressing problems faced by public authority in the United States and the democratic revolutions sweeping through much of the world.